U.S.-Russian Cooperative Research on SO2 and Trace Metal Fluxes from Kudriavy Volcano, Kurile Islands (Russia)

9505523 Williams This U.S.-Russian Cooperative Research grant is for "SO2 and Trace Metal Fluxes from Kudriavy Volcano, Kurile Islands (Russia)" is between Dr. Stanley Williams of Arizona State University and Russian scientists from: the Institute of Experimental Mineralogy (Moscow), the Institute of Volcanic Geology and Geochemistry (Petropavlask-Kamchatsky), and the Institute of Volcanology and Geodynamics (Yuzhno-Sakhalinsk). Kudriavy volcano is a perfect location of studying metal fluxes from magmas due to its extremely high fumarole temperature (up to 940 C), strong gas flux, common calc-alkaline andesitic composition, and the lack of a hydrothermal system which would interact with the magmatic gases to change their composition. Studying metal fluxes at these purely magmatic high temperature conditions will help further to constrain the mass of metals degassing from calc-alkaline magma bodies, in general. The research will: (1) measure SO2 flux by COSPEC and determine rare metal fluxes; (2) direct fumarole gas sampling to determine the isotopic composition of O, H, S, C, N, and He in highly magmatic, arc type volcanic gases and investigate the effects of temperature on the isotopic compositions; (3) make inferences on the ultimate origins of the rare metals using obtained data; and (4) measure SO2 flux from other volcanoes nearby on the Kurile Arc: Baranski, Ivan Grozniy, and Burevestnik. This proposed research in geological sciences fulfills the program objectives of advancing science by enabling leading experts in the U.S. and Russia to combine complementary talents and pool research resources in areas of strong mutual interest and competence. The workshop will also be used to promote the interest of graduate and undergraduate students in particle physics. ***